Whales: Interactive Exhibits at the National Aquarium in Baltimore

The National Aquarium in Baltimore will create 20 interactive interpretive exhibits relating to cetaceans as an integral part of a new Marine Mammal complex opening in 1989. Exhibits will complement cetacean behavior demonstrations conducted by mammologists in a 1300 seat marine amphitheater. Exhibit topics and content will be developed in response to survey and evaluation data on popular interests and misconceptions about marine mammals by a design team consisting of aquarium staff, educators, marine scientists, designers, and evaluators. The resulting interactive exhibits will be seen by one and a half million visitors a year in an exhibit area adjacent to the marine amphitheater where visitors will gather prior to and after scheduled demonstrations. NSF project support will be matched by an equal contribution from the National Aquarium.